Parallel Processors for Constraint Languages

The focus of this project is the development of compilers and interpreters for Logic and Constraint Programming (CLP) languages executing on sequential and parallel machines. Prolog is an example of such a language, and it offers the users capabilities of solving problems in domains including reals, booleans and strings. The four specific topics of the project are: (1) Constraint Parallelism. Constraint solvers for several domains (including integers, reals and booleans) are designed, implemented and analyzed on parallel machines. These solvers are used to prototype constraint parallel Prolog systems; (2) Program Analysis and Transformations. Tools for the analysis of parallel constraint and logic programs are developed. Some of the techniques that are considered are partial evaluation and abstract interpretation based global analysis; (3) Extension of CLP. High-level, C-like languages based on constraints and interval arithmetic are designed, implemented and analyzed. The possibility of integrating, functional, set-theoretic and CLP languages in a single higher order logic programming framework is also studied; and (4) Applications of Parallel CLP. Several classes of parallel CLP applications are considered, including genome parsing, combinatorial search problems (such as scheduling), and optimization of non-linear constraint systems.